The Origins and Biological Utilization of Dissolved Organic Carbon in Riverine Saltmarsh Estuaries

The cycle of dissolved organic matter in riverine saltmarsh estuaries is remarkably non-conservative. In the Parker River - Plum Island Sound estuary of northern Massachusetts there are major inputs of DOC from rivers and from the sea, but there are also large inputs from fresh and saline tidal marshes and from estuarine phytoplankton. Through the use of stable isotope tracers we can follow the production and consumption of DOC from these different sources. The emerging view is that the large background of terrestrial and oceanic DOC is relatively refractory while fresh DOC from algae and marshes is largely responsible for the high rates of bacterial activity in these systems. The algae and marshes at times produce large quantities of DOC that are not immediately consumed by bacteria and are thus available for transport with the tides. In this proposal, the investigators couple the stable isotope approach with ecosystem modeling to calculate the ecosystem level fluxes of DOC from these different sources and to estimate the microbial consumption and export of dissolved organic matter from each source.